Hadroproduction of Heavy Flavors at Fermilab

This grant covers experimental Elementary Particle Physics research by Dr. Sheaff at the University of Wisconsin Madison in collaboration with other NSF and DOE supported scientists. She plans to study the Hadroproduction of Heavy Flavors at the Fermi National Accelerator Laboratory. Her studies involve the production and subsequent decay of particles containing a charmed quark. The detailed study of such states of matter is important in delineating the details of the Standard Model of Quarks and Leptons that describes the particles and interactions observed in nature. Dr. Sheaff further plans detector development research which could significantly increase the opportunity to study the properties of bottom quark states.